Using Research to Target Title I Needs in Mathematics

The RAPID project Using Research to Target Title I Needs in Mathematics, led by the National Council of Teachers of Mathematics, is producing research syntheses that summarize and make available to practitioners results from research on effective mathematics curricular interventions, teaching practices, and teacher professional development that have been designed to improve achievement by students in Title 1 programs. The proposal addresses the second challenge under the DR K-12 solicitation: How can all students be assured the opportunity to learn significant STEM content?

The target audience for the project includes state- and district-level leaders who must make important decisions about uses of Title 1 funding in low-income, often high-minority schools. The overall goal for the project is to bring together the best resources in both mathematics education and Title I so that programs are better able to serve the mathematical learning and instructional needs of Title I schools.